Presidential Awards for Excellence in Science, Mathematics, and Engineering Mentoring (PAESMEM)

Ram S. Lamba
University of Puerto Rico - Cayey

Dr. Ram S. Lamba's contributions to the science education enterprise have been significant with far reaching impact on the science, mathematics and engineering curriculum and related activities. His mentoring spans a lifetime having mentored students at the pre-college, undergraduate and graduate levels. Dr. Lamba's efforts include: teacher enhancement projects; revitalization of the undergraduate chemistry curriculum to promote student learning through laboratory instruction; computer interactive laboratories as a tool for redesigning laboratory experiences; development of locally produced laboratory instrumentation for the pre-college and undergraduate levels; and, infusion of technology into the teaching of science. Dr. Lamba's mentees include nine university science professors and over 500 science teachers.